Climate, Ecosystems, Infectious Disease and Health

Abstract
ATM-9815735
Geller, Laurie
National Academy of Sciences
Title: Climate, Ecosystems, Infectious Diseases and Health

The proposed work will review the role of climate variability in determining human health status through its influence on the emergence and spread of infectious diseases. The implications of this work has a longer-term climate change will be explored. The study will also assess the prospects for developing early warning and surveillance systems designed to diminish or prevent the climate-related spread of infectious diseases. The work is important because it will result in an important guiding document for public policy in climate-health related issues.